SBIR Phase I: Non-fouling Netting for Aquaculture

9860465
The biofouling of netting is a biological problem of considerable commercial interest. Fighting net biofouling can consume as much as 40% of total labor in an aquaculture. Biofouled nets, due primarily to trapped water, can increase in weight more than one hundred times in air, representing substantial tonnage that must be manhandled. Research on a novel biofouling option is proposed. If successful, the proposed coating will inhibit the development of organisms on the net surface without the use of toxicants.
Shellfish and fish farmers around the world are seeking potential solutions to the biofouling problem. In the best case biofouling is a major issue; in the worst case it is fatal to the culture. Commercial applications are wherever pestiferous organisms colonize surfaces.